Electron and Neutrino Scattering from Light Nuclei

The structure of nuclei and of the nucleons which form them is a fascinating area of basic research with important implications for other areas of science, e.g. understanding the nature of neutrinos, astrophysics, and for more applied areas like homeland security. Scattering electron beams from light nuclei enables us to learn about the structure of nuclei and nucleons, and the strong interaction which binds the nucleons into nuclei. Electron scattering experiments are carried out at Jefferson Lab, and are planned for the future Electron-Ion Collider at Brookhaven National Lab. This project provides a framework for calculating relevant observables in either a collider frame or a fixed target frame and demonstrates how to easily relate them to each other. Experiments at high energy require nucleon-nucleon data as input for calculations. These are not available for all energies, and fits constrained by relevant physics information are employed. In the past, these fits were performed by hand. The PI will apply AI and modern machine learning methods to improve these fits. This project will support both electron and neutrino scattering experiments performed in the US. The PI will continue outreach in rural northwestern Ohio and involve interested undergraduate students in this project.

Electron beams are ideal for probing the strong interaction, as the electrons do not participate in it, and thus do not disturb the phenomenon to be measured. Light nuclei are particularly interesting as they provide a great place to study the nuclear structure and the transition from hadronic to quark-gluon degrees of freedom. They are also important as a laboratory for the study of nucleon properties. The PI has developed a fully relativistic description of the D(e,e'p) reaction, including spin-dependent final state interactions. Proposed Jefferson Lab experiments focus on high missing momentum. For these kinematics, a precise description of the final state interactions is necessary, but the required experimental input for the nucleon-nucleon amplitudes is not available for all kinematics. This has been addressed by developing Regge-inspired parametrizations of the invariant amplitudes with manual, hierarchic fits. The PI will use machine learning to redo and improve these fits. Neutrino scattering from light nuclei requires many of the same elements used to describe the electron scattering reactions. Electromagnetic single nucleon responses for unpolarized and polarized targets and the validity of various common non-relativistic approximations has been investigated. This is extended to unpolarized electroweak single nucleon responses.